GOALI: In-situ Real Time Studies of Silicide Growth Kinetics in Submicron Structures

9515181 Ludwig The proposal is a GOALI effort with a focus on real-time, in-situ studies of silicide kinetics in submicron silicon device structure. The proposed research will concentrate on the study of Ti and Co interface reactions with heavily-doped silicon substrates. Studies will be directed towards growth kinetics with different geometrical arrays and shape combinations. Experiments will be performed with in-situ, time-resolved, x-ray scattering measurements, to study the silicide transformation kinetics under rapid thermal annealing conditions on patterned submircron device structures. The results of this study should lead to a fundamental understanding of silicide formation, which is an essential technology for the microelectronics. industry. ***